Developmental and Evolutionary Regulation of Fish Body Shape, Conference Grant- the Society for Integrative and Comparative Biology annual meeting in Seattle WA, Jan. 4-7 2010

PI: Jeffrey A. Walker

Proposal Number: 0949102

Proposal Title: Developmental and Evolutionary Regulation of Fish Body Shape

A major direction of current and future biological research is to understand how multiple, interacting functional systems coordinate to produce a body that works. This understanding is complicated by the fact that organisms need to work well in multiple environments, with both predictable and unpredictable environmental perturbations. Furthermore, organismal design reflects a history of past environments and not a plan for future environments. How complex, interacting functional systems evolve, then, is a truly grand challenge. This symposium will be held to convene scientists ranging from geneticists, to physiologists, to ecologists, to engineers to facilitate the emergence of fish body shape as a model system for understanding how complex, interacting functional systems develop and evolve. Fish body shape is a complex morphology that 1) results from many, many developmental paths and 2) functions in many, many different behaviors. Understanding the regulation and coordination of the many paths from genes to body shape, body shape to function, and function to a working fish body in a dynamic environment is now possible given new technologies from genetics to engineering and new theoretical models that integrate the different levels of biological organization (from genes to ecology). By convening a diverse array of researchers and encouraging participants to think about how these fields overlap and interact, this symposium will facilitate a holistic, or systems, approach to understanding complex functional systems.